NER: Hybrid Carbon Nanotubes as Tunable Nanomechanical Detectors

We will evaluate the potential of hybrid nanotubes as nanomechanical detectors. Our specific research goals are: i) to develop a TEM-based experimental testbed for fundamental mechanical studies of hybrid nanotubes, ii) to assess the mechanical properties of these systems through studies of resonant behavior, iii) to understand the irreversible processes that will dictate energy losses and thermodynamic noise in resonant nanotube detectors, and iv) to assess the prospects of these nanosystems for "in-tube" NMR detection and as magnetic force sensors.

This exploration will leverage Evoy's expertise in structural studies of nanomechanical systems, and will employ Luzzi's and Johnson's existing abilities in the synthesis of hybrid nanosystems. The proposed program will be implemented through approaches and satellite activities that will have broader academic impacts. An undergraduate project will allow a young researcher to provide his own contribution to a larger program. In addition, the development of digital curriculum will result in a Nanotechnology course to be delivered asynchronously to local community colleges, and/or through closed circuit delivery at Puerto Rican sites.